Realistic Computer Rendering of Complex Scenes Using Quantitative Perceptual Error Metrics

This research is concerned with the design of computer graphics that produces realistic images of environments that are complex with respect to geometry, reflection behavior, and light transport. This design will be pursued with the additional goals of real-time performance on general purpose hardware that will exist within one to two decades, and compatibility with display algorithms based on human perception.